21st Century Urban Technical Education Project: Construction Technology Systems for Grades 11 - 14

This is a three-year project to prepare technical high school students for technical career opportunities through a 2+2+2 program. Focusing initially on the construction trades it will develop an integrated technical education model. The model included teacher preparation, faculty development, diversity, and the integration of technology into interdisciplinary curriculum modules. The project draws upon other NSF/ATE supported projects and NSF/Teacher Enhancement supported projects. The project also provides internships and other experiential learning opportunities.